WORKSHOP: Graduate Student Travel to 2nd SIGMETRICS Symposium on Parallel and Distributed Tools being held August 3-4, 1998 in Welches, OR

This award will support graduate student participation in the 2nd SIGMETRICS Symposium on Parallel and Distributed Tools, to be held on August 3-4. 1998 at Welches, OR and is the successor to the biannual parallel debugging workshop. This premier symposium on parallel tools typically brings together the top researchers from around the world. Being a small conference, graduate students have many opportunities to meet informally and interact with leaders in the field. The workshop traditionally puts out a document that summarizes both the papers presented and the discussion they evoked. The graduate student recipients of these travel grants will produce the web document, each reporting on one of the sessions.